Membrane Based Peptide Synthesis

This proposal is interested in addressing the chemical aspects of microporous membranes in the synthesis, purification, and structural characterization of peptides. The following specific goals are to be accomplished: - Identify synthetic membranes that are stable enough to withstand repeated synthetic manipulations in organic and/or aqueous solvents. - Develop effective linkages with suitable spacers to preserve the unique advantages of the microporous membrance structure while improving the ease of ligand attachment and subsequent synthetic steps. - Determine the optimum solvent systems for futher synthetic elaborations. - Investigate the compatibility of newly developed techniques for peptide cleavage resins to assess their applicability to removal of synthesized peptide from the membrane.